Insight through Images: A Computer-Based Image Analysis Program for Life Sciences

9450950 Tseng An interdisciplinary project involving the Departments of Biology, Mathematics, Computer Science, and Statistics on incorporates computer imaging technology into the biology curriculum. A multi-functional computer image analysis system with the custom designed software has been developed for such a purpose. This master system combines three major functions (electrophoresis gel analysis, chromosome analysis/karyotyping, and morphometric analysis) into a single unit, a workstation. Twenty of these workstations are used for 1) teaching of a new course in Bioimaging, and 2) incorporation of the imaging technology into four biology courses (Microbiology, Cell Biology, Genetics, and Recombinant DNA) and one Computer Graphics course. The Bioimaging lab is also used for honors projects involving image analysis.